Higher Order Grammar

With National Science Foundation support, Dr. Carl Pollard will
conduct two years of research on the specification and implementation
of Higher Order Grammar (HOG), a new formal framework for theoretical
and computational linguistics intended as a successor to Head-Driven
Phrase Structure Grammar (HPSG). The research is also expected
to have significant consequences for other formal linguistic
frameworks such as lexical-functional grammar (LFG), type-logical
grammar (TLG), and possible-worlds semantics. HPSG, developed by
Pollard and others in the 1980's and 1990's, is still one of the most
widely employed formal linguistic framweworks, but has many
undesirable features that arise from its highly nonstandard and
idiosyncratic mathematical foundations, which make it unnecessarily
difficult for nonspecialists to learn and use, and which create a
barrier to collaboration with colleagues in adjacent disciplines
(especially mathematics, logic, and computer science). While
preserving the underlying model-theoretic (or constraint-based)
approach characteristic of HPSG, HOG seeks to eliminate these problems by shifting to more established and better understood mathematical
foundations, namely intuitionistic propositional logic (IPL) and its
associated proof theory.

Of particular interest in connection with meaning is the fact that the
notion of POSSIBLE WORLD is definable in the HOL, enabling
propositions to be treated as primitives and worlds as defined (the
reverse of the situation in the standard Carnap-Kripke-Montague
tradition); this setup gives us all the worlds we need (but no
impossible worlds), while at the same time leading to novel and
surprisingly simple solutions of longstanding semantic conundrums
familiar to philosophical logicians (such as the logical omniscience
(or granularity) problem and the Hesperus-Phosphorus problem). Attention will also be given to the syntax-phonology interface, working from the hypothesis that phonological interpretation can be treated as
formally on a par with semantic interpretation (in terms of categorical
logic,the syntax-semantics and syntax-phonology interfaces are both
partial logical endofunctors).